Gordon Research Conference on the Chemistry and Physics of Nanofabrication; Tilton, NH

9810699 Storm This award supports the attendance of advanced U.S. graduate students at the 1998 Gordon Research Conference on the Chemistry and Physics of Nanostructure Fabrication. The conference, to be held June 21-26, 1998 at the Tilton College in NH, is being organized by John Randall of Texas Instruments (Chairman) and Christie R. K. Marrian of the Naval Research Laboratory (Chairman-Elect). The science of nanostructure fabrication is vital not only to today's information revolution but to the fields of imaging and manipulation of chemical and biological structures. Future progress in all these disciplines is paced by advances in the science and technology of nanofabrication that will be discussed at this conference. The conference format - a week of continuous interaction with experts in interrelated fields in a casual setting - provides a particularly rewarding oppourtunity for graduate students to exchange ideas with and to learn from this gathering of leading researchers. %%% ***